Student Travel Support for the First Workshop on Health Security and Privacy (HealthSec '10)

The HealthSec workshop is a forum for discussing innovative and potentially disruptive ideas on all aspects of medical and health security and privacy. A fundamental goal of the workshop is to bootstrap future innovation and collaborative, cross-disciplinary research between diverse fields, including, but not limited to, technology, medicine, and policy. This award will assist approximately 10 US-based graduate students to attend the First Workshop on Health Security and Privacy (HealthSec). Participation in HealthSec and similar conferences is a valuable and important part of the graduate school experience. It provides students with the opportunity to interact with senior researchers in the field, and be exposed to leading edge work in the field.